Fabrication of Molecular Sieving Silica Membrane Using Atomic Layer Controlled Chemical Vapor Deposition

One technique for achieving exceptional selectivity in the membrane gas separation of small molecules such as N2, H2, O2, CH4, and CO is to tailor the pore size of the membrane so that only the desired molecules can fit through the pores. Since molecules such as N2, H2, and CO have diameters in the range of from 3-to-6 A, it is necessary to make membranes with pore sizes, which can be adjusted to a desired value within this range. To achieve this goal, this research suggests a unique approach to making and tailoring the pore size of microporous inorganic membranes. The starting material for the membrane is inexpensive Vycor glass, whose pores are approximately 40 A or larger in diameter. The pore surfaces of this glass contain silanol groups (Si-OH). The PI Proposes reacting these groups (via a CVD process) with SiCl4 to form -Si-O-SiCl3. This reaction coats the surface with an atomic layer, which reduces the pore diameter. The chlorinated surface can then be hydroxylated by the reaction with H2O to form Si-O-SiCl2-OH, which further reduces the pore diameter. By successive reactions one can achieve atomic layer control of the pore size. Microporous membranes with particular pore sizes will be made, and will be tested for their selectivity in various binary separations.